Automatic Code Generation Techniques for High-Performance Finite Element Computations

This award is to support a postdoctoral associate to work in experimental computer science. The associate, Naveen Sharma, will work with Dr. Paul S. Wang on finite element analysis in the context of high performance computing. The research will consist of a multi-faceted approach to finite element analysis combining symbolic, numeric, and parallel computing techniques. The research will bring computer science expertise to engineering applications. The research will bring both ease of use and high performance to a larger group of scientists and engineers.